Urbino Summer School in Paleoclimatology for 2019 United States Graduate Student Participation; Urbino, Italy; July 9-26, 2019

This award supports U.S. student participation at the Urbino Summer School in Paleoclimatology (USSP). Every summer since 2004 the USSP offers 40-70 graduate students from around the world an intensive, integrative experience which includes lectures, investigations, case-studies, parallel specialized-sessions, and field work and analyses; building a network of young scientists in the field. Support for faculty and student participation is shared among several participating countries.

The summer program provides a unique immersion experience in the latest thinking in paleoclimate science and the hands-on nature of the teaching provides a strong bridge between theory and practice. The process for selecting participants is structured to enable recruitment of a diverse student body.